Formation of Hybrid Natural Products by Interspecies Cloning of Streptomycetes

In the first funding period of this project significant progress was made towards the formation of novel hybrid molecules via interspecies cloning in streptomycetes. Three novel compounds were produced and characterized, two new genes associated with nosiheptide resistance and biosynthesis have been isolated and sequenced, and we have learned much about polyketide biosynthesis. In the continuation of this project we will develop and test further examples of interspecies cloning in streptomycetes to produce novel natural products. The focus will be experiments in which we can predict the formation of specific hybrid molecules based on our knowledge of pathway biochemistry and genetics. When novel products are observed, they will be isolated, purified, and their structures will be determined using a variety of spectroscopic techniques.